Improving Undergraduate Education in Aquatic Science

The aquatic sciences program at Grand Valley State has had a far reaching impact on the regional knowledge of aquatic resources, and science in general. To improve the educational level of students majoring in biology, with an emphasis in aquatic science, new equipment for hands-on investigation is essential The equipment requested in this proposal is for use in laboratory and student research projects designed to develop logical thinking skills. Students will take a very active role in data collection, analysis, and interpretation. K-12 students and teachers and lay persons in the community will also benefit from the use of this equipment.